The Modern Software Development Laboratory: Enhancing the Practical Experience of Advanced Undergraduate Computer Science Majors

This project provides advanced Computer Science undergraduates with laboratory experiences needed to broaden their knowledge of the principles of software engineering and "programming-in-the-large" which they previously acquired only through class lectures and assigned reading. This permits students to relate a sound theoretical understanding of software engineering techniques to laboratory assignments. Funds have been provided to enhance and expand the current university-wide network of DEC machines so that students enrolled in Software Engineering, Artificial Intelligence, and other upper level courses have access to the automated resources necessary for the practical investigation of topics such as prototyping, the development and use of automated front-end life cycle tools, object oriented design, and module reusability. Further, students gain hands-on familiarity with the software development techniques and tools that they will use after they graduate. The equipment permits students, through previously acquired software, to undertake and complete reasonably realistic projects more easily and efficiently, thus allowing them to concentrate on broad general aspects of software development. The award is being matched by an equal amount from the principal investigator's institution.